Homotopy Theory and Applications

DMS-0306519
Michael J. Hopkins, Lars Hesselhot, and Haynes R. Miller

Professor Hesselholt, working with Ib Madsen and Thomas Geisser, has
made deep advances in understanding the cyclotomic trace spaces
associated to a ring. These spaces were invented to describing the
diffeomorphism groups of high dimensional manifolds, and Hesselholt's
work is a significant step in that program. Central to Hesselholt's
work is a connection he descovered between the cyclotomic trace spaces
and the de Rham-Witt complex of p-adic arithmetic algebraic
geometry. This has led to a generalization of the de Rham-Witt complex
to a mixed characteristic situation, where it is related to the sheaf
of p-adic vanishing cycles. This relationship further suggests the
existence of a motivic theory behind the cyclotomic trace
spaces. Under the support of this grant, Hesselholt will pursue this
striking relationship between p-adic arithmetic algebraic geometry and
the computations in topology relevant to understanding diffeomorphism
groups. Professor Hopkins, working with Matthew Ando and Charles Rezk
has recently uncovered a new approach to congruences between modular
forms using algebraic topology, which he plans to pursue with an eye
on several open problems in the area. In another collaborative
effort, Professors Hopkins, Dan Freed and Constantin Teleman
discovered a topological expression for the Verlinde algebra--an
algebraic structure arising in mathematical physics and in the theory
of representations of loop groups. The three of them plan to explore
this connection more deeply, with the long term ambition of
discovering the topological sources of topological quantum field
theories. Hopkins will also continue his work with Isadore Singer on
their theory of ``differential function spaces,'' which offers a
refinement of algebraic topology especially suited for meeting the
demands of mathematical physics. Professor Miller will continue his
work on Landweber exact and elliptic cohomology theories, his work
with Bill Dwyer on topological Hochschild homology and the geometry of
free loop spaces, and his study of the homotopy theory of algebraic
structures arising in knot theory and the modern theory of Hopf
algebras.

The field of algebraic topology arose in the late 19th century as
mathematicians noticed deep similarities between very different
looking areas of research. By the beginning of the 20th century, the
basic theory of algebraic topology was in place, and it was being used
to explain, codify and reveal many qualitative aspects of geometry.
During the next hundred years algebraic topology advanced at an
amazing pace, and by now it seems as if every branch of contemporary
mathematics draws on some form of algebraic topology when undertaking
to articulate its qualitative aspects. The algebraic topology group
at MIT runs a large and diverse program emphasizing the many
connections between algebraic topology, algebraic geometry, geometry,
and mathematical physics.